1990 Gordon Research Conference on Catalysis

Funds are provided to subsidize the attendance of young faculty members, postdoctoral associates, and advanced graduate students at the 1990 Gordon Research Conference on Catalysis to be held June 25-29 in New London, NH. Some of the funds will be used to support minority and female researchers.